High-Speed Research Connectivity for The University of Montana

With this award, The University of Montana will join over 150 other
research universities who are engaged in advanced high performance
networking, the Next Generation Internet initiative, and the consortium of
Internet2 universities. The award provides Montana with $350,000, an amount
they will more than match, so that they can establish their advanced
network link through a gigapop in Seattle at the University of Washington.
These network connections are supported by NSF in order to enable science
and research uses at the universities. Montana has a number of strong
research activities and programs related to the biological sciences,
mining, forestry, land use, and management of natural resources. Their
collaborations with other universities in the region and throughout the
nation, as well as other support from NASA and DOE, will be greatly served
by this new networking facility.